Simulations of Alfven Wave Resonance Absorption

The study of resonance absorption of MHD waves in space plasma has basic importance. This research will use a new approach by using a recent hybrid computer code to extend this study in an ion kinetic regime. The computational results will provide new insight in nonlinear processes.